Conference: NISS 2024 Writing Workshop for Jr Researchers

The National Institute of Statistical Sciences (NISS) Writing Workshop for Junior Researchers in 2024 will be a hybrid event, held online on two Fridays in July and at the Joint Statistical Meetings on August 4, 2024, in Portland, OR. The workshop focuses on enhancing junior statistical scientists’ technical writing abilities for various professional contexts. It will cover targeting publications, grant writing intricacies, manuscript revision, collaboration, ethics, reproducibility, and addressing challenges faced by non-native English speakers. Additionally, it will explore the role of AI, including an introduction to ChatGPT, and feature a panel discussing AI’s influence on writing and statistics.

The NISS Writing Workshop for Junior Researchers has been nurturing top statistical writers for over a decade, offering early-career connections with leading professionals. Recognizing the essential yet often overlooked role of writing in statistics, the workshop will be hybrid to expand its reach. It will cover technical writing, publication strategies, peer review navigation, collaborative writing, and funding insights, along with reproducibility and ethics. The JSM in-person session will delve into AI’s impact on the field, featuring a ChatGPT tutorial and a panel discussion. Thirty five junior researchers from statistics and related fields will receive personalized mentorship from experienced mentors, including former journal editors and NSF and NIH directors. Submissions are due by June 30. The workshop website is available here: https://www.niss.org/events/writing-workshop-junior-researchers-2024.